Study of the Feasibility of Making an Electron-Positron Plasma (Physics)

A series of computer simulation studies is carried out with the objective of establishing the feasibility of demonstrating and studying an electron-positron plasma. Such a plasma has been assumed to be unrealizable and would have unique properties of fundamental interest.